ITR: Events, Patterns, and Analysis: Forecasting International Conflict in the Twenty-First Century

EIA-0219673
Devika Subramanian
William Marsh Rice University

Events, Patterns, and Analysis: Forecasting International Conflict in the Twenty-First Century

This grant will support work on international conflict prediction using techniques such as data mining, statistical machine learning, and stochastic modeling. News data from such sources as Reuters, AP, cnn.com, and UPI will be used to extract data about political events. Each event will code with a time, list of participants and other standardized characteristics to support the analysis and forecasting.